Evaluation of the Noyce Scholarship Program

This proposal seeks to conduct an evaluation of the Noyce program. There are four components to the evaluation: statistical analysis of the MIS data; analysis of project reports; case studies of the projects that build on project evaluations using a participatory evaluation model; and a review of the related literature